MII: Graduate Education for Minority Students in Computer Science and Engineering: Extending the Pipeline

EIA-0080940
Novick, David G.
University of Texas at El Paso

CISE Minority Institutions Infrastructure: Graduate Education for Minority Students in Computer Science and Engineering: Extending the Pipeline

The proposed project concentrates on: (i) building community among relatively isolated majority-Hispanic institutions, so that students early in the pipeline have access to role models, (ii) building a strong graduate program in a majority-Hispanic community, so that students and the program can take advantage of existing community and university support structures, and (iii) building communities of interest among the four-year colleges, an M.S. and Ph.D. granting university with the experience and capabilities to support Hispanic students, and Ph.D. granting research universities so that the students late in the pipeline have a high level of engagement with excellent research.